MGE: MU-Minority Graduate Education Project

HRD-9817233
Brady Deaton

This proposal outlines a detailed plan by the University of Missouri-Columbia (MU) to recruit, and
train 32 students as future faculty in higher education institutions, and to provide two 8-week
summer-readiness programs for 40 students, to encourage and prepare them for admission to
graduate school. This program, entitled the MU Minority Graduate Education Project (MU-MGE)
provides a unique opportunity for us to consolidate and coordinate on-going programs designed to
recruit and train talented underrepresented students, and several programs that offer unique
enrichment or development services to students at MU. Equally important, it will enable us to
implement innovative program activities, some previously-discussed and others designed
specifically for this project, and to institutionalize those that are effective. The program will
provide a model for how large research institutions, such as MU, can provide the necessary
components to advance the career goals and opportunities for underrepresented minorities to enter
the professorate in higher education institutions.

The MU-MGE project described here will have a total budget of $5,423,872, with $2,401,784
requested from NSF, and $3,022,088 in cost-sharing by the University of Missouri-Columbia. The
plan includes requesting funding from NSF to support the future faculty participants during the first
two years, with MU providing supplemental funding during this time, and then MU providing
support to them for the remaining three years for a total of five years of support for each. In
addition, funding for administrative costs--a Project Manager, Recruitment/Retention/Career
Planning Specialist, Secretary and 17 Graduate Assistants--is requested from NSF plus some
modest funding to support the 8-week summer readiness program and miscellaneous other costs
such as supplies, telephone, travel, and publications to advertise the project during recruitment and
to disseminate information about it once NSF funding terminates.

Because MU is committed to continuing the project by assuming responsibility for financing the
project for four additional years beyond the five-years supported by NSF, this project will continue
beyond the NSF funding period. It is our expectation that additional internal and external funding
will be found to expand the program offerings and the time period even beyond the total nine-year
commitment of MU.

This project includes an ongoing evaluation system of every program offering and continual
monitoring of student progress. With the collection and careful evaluation of such detailed data this will enable us to make necessary adjustments as needs arise, and especially for improving the
program offerings from year to year. It will provide an opportunity for MU to coordinate the efforts for the MU-MGE project with those of many others on campus, and to collaborate in developing new offerings with other program officers. And through the Visiting Faculty Development component, relationships will be developed by these participants and MU faculty with faculty from minority-serving institutions. These changes, in campus climate and expanded relationships, will ensure even greater success with MU's efforts to advance the opportunities for underrepresented minorities to obtain doctoral degrees and to become future faculty.